Topics in Fourier Analysis

Proposal Number: DMS-0200186
PI: Andreas Seeger

ABSTRACT

The proposed research will be concerned with several
interrelated topics in Fourier analysis. In particular
it is proposed to work on precise regularity properties
of oscillatory integral and Fourier integral operators
with degenerate canonical relations. The mapping
properties are governed by the geometry of the canonical
relations. Here we are, in particular, interested in
the cases that come up when studying averaging operators
associated to curves in higher dimensions. Other
projects include the behavior of singular maximal
functions and rough singular integrals on classes of
integrable functions, the mapping properties of wave
operators on nilpotent groups, and questions concerning
the failure of weak amenability of Lie groups.

The research project is focused on some fundamental
question in Fourier analysis, with an emphasis on
estimates for various oscillatory integral operators.
Such estimates are in particular crucial for
understanding the qualitative and quantitative behavior
of Radon transforms and related Fourier integral
operators. These operators arise in various areas of
mathematics, such as partial differential equations,
complex analysis and integral geometry, as well as in
non-mathematical applications such as tomography and
medical imaging. As an example we mention that X-ray
tomography involves inverting a Radon transform
operator; i.e. one seeks to determine an image from
knowledge about the averages of a function for a
prescribed family of lines. The operators involved in
inverting this restricted X-ray transform tend to be
Fourier integral operators as considered in this
proposal.